Low Dimensional and Semi-infinite Dimensional Topology

DMS-0206485
Tomasz Mrowka

Mrowka is engaged in number of projects centering
around Floer homology. The first is a book project with
Kronheimer giving a detailed and general account of the
foundational aspects of Seiberg-Witten
Floer homology using the Morse complex. It is hoped that this
will provide both a route for graduate students into the field
as well as be a jumping off point for more ambitious projects.
The second project also joint with Kronheimer is
to use some of the tools developed in the previous
project to relate the Seiberg-Witten and Instanton
Floer homologies. A consequence of this would be
the Property P conjecture. The third project
is to give a definition of Floer homology directly
using infinite dimensional cycles.

Mrowka will continue investigations into the study of
mathematical models for space-time. These investigations
center around understanding properties of solutions and spaces
of solutions to the various equations of high energy physics,
primarily the Yang-Mills and Sieberg-Witten equations.
The beauty of these equations is that
gross properties of the spaces of solutions reflect
subtle properties the space-time that they live
on. One application of Mrowka's previous work
is to theoretical biology in particular
the knotted properties of DNA. The mathematical question
of estimating the unknotting number give
estimates on the number of times topoisomerase
needs to act on a given loop of DNA.